Star Formation in Galaxies

A major topic of study in astronomy concerns the way in which stars are formed from the gravitational collapse of interstellar gas clouds. The Principal Investigator (PI) wishes to extend earlier studies supported by the NSF of numerical simulations of proto- star under the mutual influence of gravity and rotation. The PI will use sophisticated new numerical techniques to compute models in two and three dimensions. Models will be computed to "follow" this collapse in time, with particular attention to the development of minor density fluctuations which could grow ultimately into planets or a secondary star. NSF support will include the purchase of a computer workstation so that movies of simulated collapses can be followed in "real time" over a wide range of test conditions. These results are expected to increase our understanding of how proto-stars lose angular momentum during their collapse and to define the conditions leading to the formation of two separate "binary" stars.